U.S.-France Cooperative Research: Shape Analysis of DampingProcesses for Elastic Systems in Structural Modelling

This three-year award supports U.S.-France cooperative research in applied mathematics. The investigators are Irena Lasiecka and Roberto Triggiani from the University of Virginia and J.P. Zolesio and M. Souli from the University of Nice. The investigators will utilize partial differential equations, hyperbolic equations and numerical analysis in approaching a number of problems in structural mechanics. The project focuses on elastic structures whose dynamical behavior is effected by internal damping of vibrations. The objectives are to enhance stability properties by determining the optimal shape or design of the elastic structure so that undesirable vibrations are reduced. The U.S. investigators bring to this collaboration their expertise in mathematical modelling of structural damping, optimum control and related questions and the utilization of elastic partial differential equations for determining controllability and stabilization properties. This is complemented by French expertise in shape analysis and optimization. The research has important applications in the areas of space mechanics and control.